Group Travel Grant to 2005 IEEE International Conference on Computer Vision in Beijing, China October 15-21, 2005

The annual IEEE International Conference on Computer Vision (ICCV), sponsored by the IEEE Computer Society, is one of the best events in terms of quality and quantity in the areas of computer vision, and has served as a forum gathering international researchers for presentation and discussion of emerging technologies. This project is to support about 35 U.S. researchers to participate in the 2005 ICCV that will be held in Beijing, China October 15-21, 2005. The primary objective is to help U.S. researchers participate in this key international conference, who could not otherwise attend the Conference. U.S. researchers will maintain a highly competitive position in research by presenting research results, discussion, and exchange information with researchers from all over the world. This project strongly supports minority group researchers and students who would need financial support for their participation in the 2005 ICCV.